Using Declarative Machine Descriptions in a Retargetable Optimizing Compiler

A computer program is written in a high-level *programming*
*language*, but to be run, it must be translated into a *machine*
*language*. Each kind of machine---desktop computer, cell phone,
handheld computer---has a different machine language and needs a
different translator. At present, each translator must be written by
an expert who specializes *both* in translation *and* in machine
language. This project will develop methods by which a translator can
be written without such double expertise. An expert who knows only
about the machine will write a *declarative* description that says
what the machine does. The project's software will analyze this
description and mechanically produce components to be used by an
expert who knows only about translation. Because this approach relies
crucially on the description's being correct, the project will also
develop techniques for mechanically checking that the description is
consistent with real hardware. The descriptions and the analysis
thereof will enable the machine expert's work to be reused in many
different translators (and other applications) and the translation
expert's work to be readily applied to many different machines.
Translators for new machines will be developed more quickly, more
reliably, and with less effort than at present.